Bioacoustic Monitoring in the Terrestrial Environment: A Workshop at the UCR James Reserve, July, 2008

A grant has been awarded to Drs. Daniel T. Blumstein, Charles E. Taylor and Kung Yao at the University of California Los Angeles to host a workshop that will bring together current and potential users of bioacoustic sensor array technology with engineers and computer science experts to identify needs and current abilities, and to prioritize technology development and research questions.

The meeting will be held at the James Reserve, a University of California Field Station notable for the degree to which cutting edge sensor array technology has been deployed. The meeting will have a series of keynote talks and break-out groups where researchers from different fields will collaborate to develop a position paper.

The broader significance of this work is to facilitate the development of robust, easy-to-use acoustic sensor arrays with user interfaces appropriate for researchers in animal behavior and ecology, to excite promising students about the development and application of this technology, and to provide underrepresented engineering students a frontier intellectual and technical experience to encourage them to pursue advance study or to continue to the doctorate.